Turbulent Kinetic Energy Dissipation in Buoyant Motions

This research project examines the influence of buoyancy forces on the rate of turbulent kinetic energy dissipation. Two problems in which buoyancy forces play a significant role in determining the motion are investigated: turbulent plume generated by a source of buoyant fluid and vertical mixing across adensity- interface within a fluid. The experiments are performed using alaser-Doppler anemometer for velocity measurement and laser induced fluorescence in dye molecules for tracer concentration. The research results will be of practical importance to environmental engineers concerned with particle coagulation mechanics, and the mixing of dissolved materials withindensity-stratified fluids. Applications include the optimal design of waste water treatment and disposal systems, description of processes such as aeration of water bodies, dissolution of atmospheric gases such as carbon dioxide, and flocculation of suspended particles in river estuaries.